Monotone and Nonmonotone Growth Models

This project is devoted to studying deterministic and random
cellular automata models of growth processes, with the emphasis
on several new directions. The first field of study are
nonmonotone growth models; the investigator aims to study
their growth shapes and space-covering properties by extending
renewal, rescaling and perturbation techniques from probability,
as well as various geometric methods. Also being developed are
new analytic and computational approaches to higher dimensional
and long range models, and to connections with differential
and integral equations. An important example of a high-dimensional
space is the hypercube, where the investigator uses
combinatorial and probabilistic methods to understand the
effect of uncorrelated and correlated random environments
on basic growth processes.

In a broad scientific context, the aim of this project is
to understand principles by which various physical systems
propagate disturbances. Among instances of such growth
dynamics are growth of snowflakes and other crystals, spread
of epidemics, propagation of waves, competition between species,
and genetic diversification. The investigator's research sheds
light on how microscopic properties of a growth process influence
its space-covering ability, on the effect of perturbations in
the environment and in the dynamics, and on the role of dimension
and range of interaction. For example, simple mathematical metaphors
for neutral mutations, incompatibilities and harshness of the
environment contribute to understanding the onset of genetic
diversity. The project has an essential computational component
and is developing a variety of efficient computer algorithms
for simulation and visualization of complex processes. Finally,
ample opportunities for undergraduate involvement in studying
complex and random dynamics help to popularize mathematics and
its applications.